Collaborative Research: A Late Cretaceous and Paleogene Arctic Paleoclimate Record: The Sedimentary Sequence at Strand Fjord, Axel Heiberg Island N.W.T. Canada

This award is for support of a two year study to test a preliminary magnetostratigraphic correlation which was developed for Strand Fjord, Axel Heiberg Island, N.W.T., Canada. In addition to extending the section to younger (Eocene) and older (Campaign- Maastrichtian) sediments, an in-depth lithostratigraphic and magnetostratigraphic study will be made of a laminated lagoonal sequence at Strand Fjord. This sequence affords a nearly unique opportunity to obtain a Late Cretaceous polar paleoclimate record of annual variability that also extends into the Milankovitch frequency band.